AF: Small: Local Computation Algorithms

The ubiquitousness of massive data sets presents
great challenges. The difficulty of dealing with massive data
sets is especially formidable when attempting to
solve computational problems in which both the inputs
and the outputs to the computation are large.
In such a situation, it would be useful if one could find
faster ways of computing just the portion of the output that is required
by the user.

This project aims to study "local computation algorithms",
namely algorithms that quickly compute only the portions of the
output that are required by the user,
without performing the full computation.
In particular, local computation algorithms
view only a miniscule portion of the input.
The PI considers a broad based approach, studying the application of
local computation algorithms to a range of problems and
settings within algorithm design.
The focus of this research is on the question of when local computations
can be done in time that is sub-linear in the size of the input and output.
The proposed research will develop techniques for constructing
such algorithms and for understanding when such algorithms are
not possible.

The project will leverage known results from sub-linear time
algorithms, which for the most part have focused on the somewhat
different setting of computational
problems in which the inputs are large but the outputs are small.
In addition, the project will investigate well-studied
classes of algorithmic techniques and focus on modifying them for
use in this new setting. Such classes include algorithmic techniques
first developed for parallel and distributed algorithms, as well as the
extensively used greedy method.
Problems from combinatorial optimization, graph theory and compressibility
of strings will be studied.